A Fourier Transform Infrared Spectroscopy System for Under- graduate Chemistry

This project will introduce Fourier transform infrared spectroscopy (FT- IR) into undergraduate laboratory instruction and undergraduate research projects at SUNY-College at Oneonta. The laboratory experience with FT- IR in instrumental analysis laboratories will complement the lecture material on Fourier transform techniques. These powerful techniques are used increasingly in industrial and other research laboratories to solve difficult problems in chemistry. Thus chemistry education at the college will be upgraded substantially, and chemistry graduates will be better prepared to enter the scientific workforce or to begin graduate studies.